Presidential Young Investigator Award: Research in Detector Development and Particle Physics

The investigator outlines a research plan directed towards development of high precision, solid state tracking devices which can be used to reconstruct vertices corresponding to the origin of tracks from D or B meson decays. The kind of detector presently envisaged uses a newly emerging technology with two sided strip etchings on a silicon substrate. More esoteric detectors are also to be developed using heterojunction techniques. The devices so formed would have an intrinsic gain reducing the need for massive external electronics.